Biophotonics: Optical Coherence Elastography and Biomechanical Modeling of Developing Tissues

0519920
Boppart
The goal is to develop optical coherence elastography and use it to understand the role of micromechanical forces on development of biological tissues. The mechanical properties will be used in mechanical hydrogel models to determine rules governing organization and patterning of biological tissue. Measurements will validate the models. The project will create a new tool for biomechanical measurement and imaging, improved or refined biomaterial design, insights into functional properties of tissues, potential impact on future engineered and functionally-inspired tissue Using an experimental approach similar to what has been used for ultrasound sonoelasticity imaging and ultrasound elastography, promising preliminary results are provided, demonstrating the ability of OCT imaging to visualize changes that can be induced in engineered tissue following controlled loading of the sample. Low frequency vibrational energy will be used to slowly load the tissue.